Regulation and Physiological Role of Isoprene Emission from Plants

9317900 Sharkey Isoprene is emitted from plants and animals in significant quantities. Many plants emit 2% of the carbon fixed in photosynthesis as isoprene making it a major metabolic pathway in these plants. Isoprene emitted from plants substantially affects atmospheric chemistry. The metabolic control of isoprene emission and the advantage to plants and animals which emit isoprene are unknown. The regulation of synthesis of many isoprenoids is affected by hydroxymethylglutaryl CoA reductase (HMGR) and it is speculated that most HMGR activity of isoprene emitting plants is required for isoprene synthesis. This project deals with the regulation of isoprene synthesis, focusing on HMGR and the recently discovered isoprene synthase. The location of the HMGR needed for isoprene synthesis will be determined by chloroplast isolation and by nonaqueous fractionation of leaf material. The research will exploit recent discovery that a wound-induced signal in one leaf can travel to a second leaf and reduce the rate of isoprene emission by as much as 80% within 3 minutes. The activity of HMGR and isoprene synthase before and after the arrival of this wound signal will be measured to determine how isoprene synthesis is regulated. The research will also exploit the discovery that kudzu (Pueraria lobata (Willd) Ohwi.) leaves do not emit isoprene when grown at 20 degree centigrade but can be induced to emit isoprene by a 6 hour treatment of 30 degree centigrade. The physiological role of isoprene emission will be investigated by exploring the recent evidence of thermal protection for the photosynthetic apparatus provided by isoprene. The proposed research is needed to determine whether it will be possible or desirable to modify isoprene emission from plants. Isoprene is an important raw material for synthetic rubber synthesis. The current market is one billion dollars per year. Because of carcinogenicity of the common substitute for isoprene, batadiene, an inexpensive biogenic source of isoprene could have a large impact on the rubber industry. Finally, the synthesis of free isoprene is a major metabolic pathway in plants and animals which has been largely overlooked until now. Understanding the physiological relevance of isoprene emission may lead to important and useful insights which cannot yet be predicted. ***